NUE: Nanotechnology Across The Undergraduate Chemistry Curriculum

This Nanotechnology in Undergraduate Education (NUE) award to Professor Thomas J. Manning of Valdosta State University is jointly supported by the Chemistry Education Program and the Division of Earth Sciences. It supports twelve areas of hands-on nanotechnology experiences in undergraduate education. Among these are: measuring colligative properties of solutions containing nanostructures, aqueous phase chemistry of functionalized fullerenes and nanotubes, comparisons of nanotubes to DNA, nanoparticles in the environment and computer simulations of nanostructures and their reactions. The project emphasizes the practical aspects needed for large-scale implementation in the first two years of an undergraduate science curriculum including economic factors involving chemicals and instrumentation, safety issues, correlation to topics covered in undergraduate courses, and clearly defined procedures for exploratory hands on experiences.

The proposal for this award was received in response to the Nanoscale Science and Engineering program announcement, NSF 02-148, category NUE. The project involves a program and organizational structure to develop and disseminate 12 hands-on laboratory experiences and educational materials for undergraduates.